Dissertation Research: Social Differentiation in the Middle Period in the Valle de la Plata, Colombia

Under the supervision of Dr. Robert Drennan, Mr. Jeffrey Blick, a graduate student in the University of Pittsburgh Anthropology Department, will collect data for his doctoral dissertation. For many years Dr. Drennan has conducted archaeological research in the Valle de la Plata region of Columbia, an area noted for its impressive prehistoric sculptured stone figures. He has linked these to the development of complex chiefly societies. Mr. Blick will examine one stage of this process in detail. Focussing on the Middle Period which dates from 0-850 A.D., he will examine ceramics from existing surface collections and conduct soil phosphate testing as well as extensive survey to locate intact sites. He will then excavate four to six residential areas to recover household information. These individual households will then be compared to examine potential differences in wealth and economic stratification. In recent years many archaeologists have focussed on the question of how complex societies develop and the role which emerging social inequality plays in this process. Archaeological data make it clear that differences in prestige existed since limited numbers of large and impressive burial structures are known to be associated with this time period and these indicate differences in individual status. It is not known, however, whether these also reflect variation in individual wealth, and Mr. Blick's excavation of residential units will provide relevant data. This research is important for several reasons. First, it will increase our understanding of how complex societies originally developed. Second, it will provide information of interest to a large number of archaeologists who study the culture history of Middle and South America. Finally, it will assist in the training of an extremely promising young scientist.